DLI-Phase 2: A Digital Library for the Humanities

Abstract

IIS-9817484
Crane, Gregory
Tufts University
$374,316 - 12 mos. (Jointly funded with SBE/S&T Studies of the amount of $200,000 which totals the award to $574,316)

DLI Phase 2: A Digital Library for the Humanities

This is the first year funding of a five year continuing award. This project is focussing on developing the foundations of a scalable, broad-based, interdisciplinary digital library for the humanities. The principal investigators for this project include not only humanists but also specialists in computer-human interface design and in cognitive science. The goals are to both to improve the ways that humanists can perform their intellectual work and to design materials that are more accessible to the vastly expanded audience already reached by the World Wide Web. Digital libraries allow us to improve traditional teaching and learning; they also challenge us to redefine the relationship between the humanities and society as a whole. To achieve the goals, new document models must be developed to serve a more complex audience and which are designed to interact at various levels in diverse human and electronic contexts; that is, as part of a scalable, integrated digital library that can be maintained over time. Building on twelve years of development with the Greco-Roman world, the project team will create a digital library that includes a wide range of materials, ranging from ancient Egypt through nineteenth century London.